Travel Support for the Israel Symposium on the Theory of Computing and Systems; Haifa, Israel; May 27-28, 1992

This proposal contributes to ISTCS'92-the Israel Symposium on the Theory of Computing and Systems to be held in Haifa, Israel, May 27 to 28, 1992. Interaction between Israeli and American computer scientists has always been very fruitful. At the same time, it has always been quite imbalanced-quite a few Israeli researchers travel to the US, but only a small number of American researchers visit Israel. As a result, many of the Israeli universities faculty members, students, and researchers in industrial research organizations have only limited opportunities to interact with their American colleagues, leaving room for improvement. A major inhibitor for closer interaction is the travel expenses. It is the objective of this proposal to provide partial support for American researchers who are interested in attending.